Molecular Basis of the Circadian Mechanism

9407948 Abstract A circadian system was described which controls sperm release and maturation in the make reproductive tract of the gypsy moth. The system was characterized at both the chrono-biological and physiological level, including a time-table for its development during adult metamorphosis. Study of this system at the molecular level was initiated and resulted in the isolation of three clock related(cr) genes whose transcript abundance appear to fluctuate in a circadian fashion. A determination will be made as to whether and how CR genes are involved in the clock mechanism. Changes in the abundance of the three CR genes will be examined during the course of development of circadian system after resetting of the circadian mechanism by light or temperature, and in conditions which disrupt rhythmicity using an RNAse protection assay and reverse transcription-PCR. In addition, cellular localization of mRNAs corresponding to CR probes will be studied by in situ hybridizations. %%% Circadian rhythms are ubiquitous in living organisms at every level or organization, from gene transcription to behavior. Despite the fundamental importance of circadian rhythms, the molecular identity of the clock that drives them remains one of the significant unanswered questions of modern biology. In this study, a simple circadian system of an insect, sperm release and maturation in the male reproductive tract of the gypsy moth, is used to explore the molecular basis of the biological clock. ***